REU/RET Site: Structure-Property Correlation Across Micro-to-NANO Length Scales

Georgia Tech operates a Research Experience for Undergraduates (REU) Site on structure-property correlations across length scales. The program emphasizes team research in projects addressing characterization and modeling of deformation and fracture in metals, mechanical properties of nanocrystalline alloys, optically active nanomaterials, and processing and characterization of functional composites. Fifteen students are recruited every year for an eight-week summer research experience. The program also includes the participation of six high school teachers every year. The teachers are part of the research teams and develop curricular materials such as demonstration projects on the research topics and computer-based materials modules. The teachers' participation is supported by the Office of Multidisciplinary Activities of the NSF Directorate for Mathematical and Physical Sciences.